Mathematical Modeling of the Chemotherapy, Immunotherapy and Vaccine Therapy of Cancer

The investigators bring together expertise in the areas of
differential equations and numerics, differential geometry, and
optimal control with the goal of developing mathematical modeling
and analysis tools applied to the creation and testing of new
combinations of chemo-immunotherapies for treating cancer. The
investigators, together with their students, carry out work along
three complementary paths. First, dynamical systems population
models are created and analyzed to determine fundamental system
behavior that helps guide the development of combination
therapies. Second, differential geometry approaches allow for
the analysis of idealized geometric forms approximating physical
structures of spherical, cylindrical, elliptic, and harmonic
spherical tumors, which can closely approximate certain in vivo
tumor geometries. Third, optimal control theory is used to
reveal paths to new optimal combination therapies with
implementation of a variety of constraints to minimize tumor
burden while keeping the patient's immune and normal cell
populations above a healthy threshold. The results of these
investigations have the potential to provide guidance in the
structuring of improved patient-specific treatment protocols.

The mathematical modeling of cancer growth and combination
treatment strategies adds to our basic understanding of cancer
response mechanisms in fundamental ways. The simulations,
geometric visualization, and optimization the investigators
undertake allow for an array of virtual experiments to be run
that can be performed quickly with no risk to living persons, but
that provide data that can significantly benefit medical decision
making. The modeling of cancer growth and treatment requires
skills from multiple disciplines. A major outcome of this
project is the development of software for simulating and
visualizing cancer growth and treatment pathways, involving
chemotherapy and immunotherapy, which can result in the creation
of new mathematically guided patient-specific combination
treatment strategies. This work lies at the intersection of
information technology and biotechnology, with mathematics at the
core. The investigators have the ability to funnel discoveries
for new treatment strategies suggested by the mathematics
directly to collaborating clinical oncologists through the
ongoing meetings of a California-based Mathematics of Medicine
Study group. In turn, the physicians in this group can enhance
the development of the mathematical models by sharing outcomes of
ongoing clinical trials. The investigators directly involve
undergraduates in the multiple facets of this cutting-edge
endeavor through research assistantships, courses, and
independent study. A unique aspect of this project is the
collaboration of three women investigators who are attracting
more women students to this area of research. The investigators
as a team can serve as role models on the forefront of the fight
against cancer, and in particular are in a good position to
affect breast cancer studies, which are of special importance to
women's health. The results from solving the challenging
mathematical, computational and biological problems of this
project are made publicly accessible through publications and
web-based postings. This collaborative effort has the potential
to help clinicians save lives and reduce the suffering of cancer
patients.